GEMSTONE: An Interdisciplinary Undergraduate Program Focusing on the Implications of Technology

EEC-9725032 Goldsman, Neil ABSTRACT This award provides funding for a project entitled GEMSTONE: An Interdisciplinary Undergraduate Program Focusing on the Implications of Technology, administered by the Institute for Systems Research (an NSF Engineering Research Center) at the University of Maryland. The goal of the Gemstone program is to give undergraduate students the opportunity to take part in multi-year, inter-disciplinary research projects in some of the most important issues affecting society today--issues that are driven by technological change but with ramifications that go far beyond technology. These research projects in such diverse areas as the environment, medicine, telecommunications, and manufacturing will be part of an academic structure that educates the participants about the issues linking technology to business, law, politics, and social structures, while simultaneously giving the students a chance to apply their new insight to important contemporary problems, challenges, and opportunities.